Conference: Plant Mitochondria: From Gene to Function in Durham, NC April 7-12, 1995

9507399 McIntosh An international meeting, "Plant Mitochondria: From Gene to Function" will be held at Durham North Carolina from April 7 to April 12, 1995. The meeting will bring together different communities of scientists asking questions about plant mitochondria. The overriding goal of this meeting will be to bring together those individuals working on the function of mitochondrial processes and those working on genetic structure and regulation to intermingle their ideas and approaches. ***